Doctoral Consortium Support for International Conference on Automated Planning and Scheduling

This award supports the participation of doctoral students from U.S. universities in the Doctoral Consortium of the 16th International Conference on Automated Planning and Scheduling (ICAPS) to be held June 6-10, 2006, Ambleside, England. ICAPS is the premier conference for research in artificial intelligence planning and scheduling. This Doctoral Consortium will provide participants with the opportunity to interact with established researchers as well as fellow doctoral students. The overall goals of the ICAPS Doctoral Consortium include providing participants with valuable feedback and exposure to additional perspectives on their work at a critical time in their doctoral research projects as well as providing helpful career advice at a critical time in their professional development. Participants will receive feedback and advice from mentors and fellow participants through activities and discussions at the Consortium as well as through a Poster Session of the main ICAPS conference. Participants in the Doctoral Consortium will be invited to publish their research abstracts on the conference web site and in a stand-alone proceedings that will be distributed to all conference attendees